Mathematical Sciences Research Equipment

This research is concerned with examining several questions in mathematics computationally. The specific areas being examined are: image segmentation and other optimization involving neural networks using computer simulation; computer vision and related problems in computational geometry; extending and testing an extension of Prolog that includes the priority method of classical recursion; finding an explicit Kahler- Einstein metric for a K3 surface with the help of a computer; investigating finite dimensional, multi-particle variational problems for configurations of small numbers of particles with the aid of a computer.